Expansion through Regional Replication of Academic/ Industrial Teachers Internship Program (AITIP) for Teachers at Minority Schools

This one year project, sponsored by the University of Wisconsin Madison and called the Assessment and Coordination of Math and Science Related Industrial Internship Programs for Secondary School Teachers, is a program to place 20 outstanding science teachers of minority students in internships in local businesses and industries so that they will have an opportunity to experience actually doing science and technology. The intern program is supplemented by lectures on science and there are follow-through projects to aid in the implementation of the summer experience in the classroom. Altogether the teachers will spend eight weeks during the summer in lectures and at work. Because the academic/industrial internship model has been so successful and holds such great promise for the future, the University proposes to expand the teacher/internship experience by working to replicate the program on a national basis. A national teachers/internship program planning conference will be organized to find out the nature of support for expanding the project into a nation-wide effort. The NSF share of the project cost is $109,580 which is being matched by $145,000 from other sources. This is a cost share of more than 132%.